Mechanics of Diffusive Failure of Fine Metal in Integrated Circuits

Research will develop mechanics modeling of failure in metal interconnects in very large-scale integrated circuits. A unified approach to diffusive void growth caused by thermal stress and electromigration and their combination is proposed, incorporating grain boundary diffusion driven concurrently by stress and electric current, and governing equations for stress and current density distributions. The primary goal would be to model void growth and thereby predict the lifetime of interconnects.